CAREER: Atomic-Scale Microscopy and Spectroscopy: New Tools for Condensed Matter Physics Research and Interdisciplinary Education

9875565
Yazdani

The recent advances in scanning probe microscopies are the unifying motivations for the proposed four-year CAREER development program, which integrates research at the forefront of condensed matter physics with an interdisciplinary educational program. The research program proposes experiments in three critical and related areas of the physics of superconductors: the interplay between magnetism and superconductivity, the suppression of superconductivity in two-dimensions, and the interactions of an unconventional superconductor with local perturbations. It is the high-resolution tunneling microscopy, together with the imaging and atomic manipulation capabilities of our state-of-the-art scanning tunneling microscope (STM), that make the proposed research possible. With this tool, we can make significant contributions to research in superconductivity and, moreover, we are in a position to address a wide range of problems in condensed matter physics. The educational component of this program involves the development of a new course to provide theoretical and practical knowledge of STM and related instruments to advanced undergraduates and beginning graduate students in a wide range of disciplines, from physics to biology.
%%%
Using the newly developed scanning probe microscopes, it is now possible to image, manipulate, and probe properties of a variety of materials, from semiconductors to biological samples on very short length scales. Using these techniques experiments will be performed in three critical areas of the physics of superconductors. This research program is complemented by the development of a new course in scanning probe microscopy, which will introduce state-of-the-art techniques to graduate and undergraduate students in a wide range of disciplines in the physical and biological sciences.
***